U.S.-Argentina Workshop: First International Symposium of Sucrose Metabolism; Mar del Plata, May, 1995

9503850 Echeverria This U.S.- Argentina Joint Workshop supports travel expenses for U.S. scientists and graduate students, who will attend the First International Symposium on Sucrose Metabolism, to be held at Mar del Plata, Argentina. The U.S. organizer is Dr. Ed Echeverria, U.of Florida , Gainesville, FL, and the Argentine co-organizer is Dr. Horacio Pontis, Fundacion para Investigaciones Biologicas Aplicadas, Mar del Plata, Argentina. Sucrose is the major product of photosynthesis, and the main form of carbon translocation, as well as the principal form of carbohydrate storage in plant cells. In brief, the growth, vigor and productivity of plants are directly dependent on an effective sucrose metabolic system. The advent of new techniques and instrumentation since the discovery of the enzymes of sucrose metabolism in 1955 has brought about an outburst of information in every aspect of sucrose metabolism in plants. The present symposium was organized in response to the growing need to assemble the enormous amount of relevant basic data on all aspects of sucrose metabolism, in order to construct a comprehensive and integrated view of this system in plants. The discussions and formulations of the symposium will assist in setting the direction for the future of sucrose research, and will allow U.S. and Argentine scientists to plan future collaborations, and will provide a rewarding international experience to the U.S. graduate students. Several of the U.S. scientists attending are leaders in the field, which is also an extremely strong area of research in Argentina. In fact, the symposium is held in commemoration of the 40th anniversary of the discovery of the enzymes of sucrose metabolism in the laboratory of Dr. Leloir (the same laboratory which is co-hosting the meeting in Argentina), who received the Nobel Prize for this discovery. It is expected that a follow up symposium will be held in the U.S.A. ***